Software Fault-Tolerance based on Observation and Control of Distributed Programs

To reduce the risks associated with software faults, the research
focuses on a fault tolerance method based on controlled execution
with lookahead. In this approach, a program is run in a lookahead
mode without affecting the external environment. During lookahead,
sufficient information is traced so that it can be analyzed for faults.
If the analysis of the execution shows that there are no faults, then
the lookahead execution is committed and its effects are visible to
the environment. Otherwise, the results from the lookahead execution
are discarded, and the system is run in a controlled mode. In this mode,
the system exercises control by introducing additional synchronization
or by changing the order of messages to avoid the fault that occurred
during lookahead.

There are three main components of the project - algorithms for
detection of software faults, algorithms for automatic
control such as insertion of control messages and reordering of
messages based on lookahead, and a system which supports controlled
execution with lookahead. For detection of software faults,
previous algorithms will be extended to work for more general model of
computation in the presence of failures. For automatic control, the project
will focus on synchronization faults in concurrent programs.
Finally, a system in Java that supports controlled
execution with lookahead will be developed.